Interactive Meteorological Computing System Under UNIDATA

This is a request for equipment to establish under UNIDATA support an interactive meteorological computer capability for the Department of Atmospheric Science (DAS) at the University of Wyoming. The computer system proposed is the IBM PA/2 class personal computer based upon the MSDOS is the University of Wisconsin McIDAS system supported by Unidata Program Center of the University Corporation for Atmospheric Research. The workstations proposed here will be used for both educational and research activities in DAS. In the educational area, our existing weather analysis laboratory will be upgraded with the interactive display capability this system provides in support of the atmospheric course offerings at the University. In the research area, we plan to use these systems as a basis tool for display and analysis of observational data in existing and planned projects.